Mathematical Sciences: Theoretical and Experimental Aspects of the Topology and Dynamics of 3-Manifolds

9407975 Christy The research entails the study of low dimensional dynamical systems and relevant topological structures. The techniques are drawn from combinatorial topology and hyperbolic systems. The aim is a classification of low dimensional systems which can be implemented via algorithmic design to computational methods. This would then lead to applications in other areas of mathematics, such as the topological structures on 3-manifolds and and quantum field theory. ***